Researching Mathematics Leader Learning

"Researching Mathematics Leader Learning (RMLL)" is a five-year research project to study mathematics professional development leaders' understandings and practices associated with developing mathematically rich learning environments. Using quantitative and qualitative research methods, RMLL investigates this issue by considering: How can leaders cultivate professional development environments in which teachers have a greater opportunity to grapple with and deeply understand mathematics? Working with four groups of mathematics leaders (75 to 100 total), RMLL studies how explicit attention to the cultivation of sociomathematical norms influences leaders' understanding of the process of creating mathematically rich environments and the impacts on their practices.